Quantifying Atmospheric Iron Properties over West Antarctic Peninsula

The research seeks to further quantify the input of atmospheric Fe into the sparsely sampled Southern Ocean (SO), specifically in the vicinity of the West Antarctic Peninsula (WAP) and adjacent continental shelf waters in the Drake Passage. This is typically a high nutrient low chlorophyll region where surface trace metal and primary productivity data are suggestive of Fe limitation. The WAP is characterized by high productivity in the austral summer, and at this time may be in the path of northern dust (aeolian Fe) input or subject to melt influx of elevated Fe accumulated from glacial and present-day sea ice sources.

Primary scientific questions are: (1) to what extent does atmospheric Fe contribute to nutrient cycles and ecosystem dynamics in the SO? (2) How is warming climate occurring in the WAP affecting the aerosol composition of the maritime atmosphere. The primary productivity of the Southern Ocean is key to understanding oceanic uptake of anthropogenic greenhouse gases such as carbon dioxide.